Quantum Information Processing and Interferometery Bases on Coupled Matter-Light Systems

The project addresses two important open problems in ultracold atomic physics related
to the general goals of quantum computation and quantum-limited precision
measurement: (I) developing a hybrid atom-photon interferometer for quantum-limited
measurements of environmental properties, and (II) developing Interaction-Free
quantum gates for deterministic long distance teleportation of atomic qubits. Both
problems make use of the fact that atoms are ideal qubits and/or probes of the
environment,whereas photons are the best choice for transmitting quantum information.